Oceanographic Instrumentation - 2019

A request is made to fund Oceanographic Instrumentation on R/V Atlantis, a 274’ general purpose research vessel, and R/V Armstrong, a new 238’ multidisciplinary vessel. Both are operated by WHOI as part of the U.S. Academic Fleet which is scheduled by the University-National Oceanographic Laboratory System (UNOLS). Both are owned by the U.S. Navy, have state-of-the-art instrumentation and support all disciplines of oceanographic research. The vessels work in all the world’s oceans supporting science funded primarily by U.S government agencies. R/V Atlantis is specifically outfitted for launching and servicing Alvin, the human occupied submersible as well as other vehicles of the National Deep Submergence Facility (NDSF).

In 2018, R/V Atlantis completed 305 days at sea. NSF funded projects accounted for 78% of the total sailing schedule (238 days). In 2019, Atlantis is scheduled for 283 days with NSF accounting for 239 of those or 85%. R/V Armstrong sailed 252 total days in 2018 and 133 of these, 52%, were for NSF. Additionally, 67 days (27%) were for NSF-OOI. The vessel is scheduled for 215 days in 2019, 21% of which (44 days) are for NSF and 37% (78 days) are for NSF OOI.

Oceanographic Instrumentation requested in this proposal includes:

1) Hidex Liquid Scintillation Counters $128,175
2) LAN Switches $45,385
3) McLane Pumps $122,475
$296,035

Broader Impacts
The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 13-589). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.